Representation Theory, Quantum Groups and Piecewise-Linear Combinatorics

BERENSTEIN, 9970533

The proposer plans to investigate the area lying at the crossroads of representation theory of Lie groups, quantum groups and piecewise linear combinatorics. Several topics will be studied: canonical bases, crystal bases, multiplicity of modules for reductive groups and totally positive varieties. The main tools that will be used in this study are valuations on the corresponding algebras, the method of involutions, convex polyhedra and birational maps.

The investigations will focus on combinatorics and various algebraic methods in trhat area. The results can be applied to study various physical symmetries and their related mathematics. This is an area that has had a large impact on physics and chemistry.